Structure-Property Relationships in Lyotropic Liquid Crystals

This proposal aims at an investigation of structure-property correlations of chirality, banded textures, and mechanical properties of cholesteric and nematic liquid crystal polymers, and the use of liquid crystals as reaction media.